Short Course on Dinosaurs; GSA Meeting, St Louis; November 1989

A Short Course on Dinosaurs is being offered at the 1989 Annual Meeting of the Geological Society of America. Fifteen experts on various aspects of the Age of Dinosaurs are presenting a cohesive summary of new research in the evolution, origin, phylogeny, adaptations, environments, and extinctions of dinosaurs and some of the plants and animals with which they lived. The Short Course is designed for non-specialists in dinosaurs to provide broad coverage and attention to new ideas and findings. Special emphasis is being given to how to set up and teach a course on dinosaurs to undergraduate students. Courses on dinosaurs have already proven to be great motivating tools that stimulate students to learn more about earth and life sciences. Dinosaurs can also be used as a vehicle to communicate ideas on subjects as diverse as molecular biology and geophysics. Short Course notes prepared from the lectures are being distributed at cost. NSF is funding the travel costs for the speakers with the balance of the costs covered by sponsoring societies.